Migration and Passivation of Metal Contaminants on Model Fluid Cracking Catalysts

Deactivation of fluid cracking catalysts (FCCs) is studied. The research focusses on poisoning by nickel and passivation by antimony on various components of model FCCs. A multitechnique approach that emphasizes in-situ experiments is used to obtain a more fundamental understanding of the catalytic, electronic, and structural properties of these materials. Specific methods used are luminescence, antimony Moessbauer spectroscopy, X-ray powder diffraction, thermogravimetric analysis, and scanning electron microscopy. Catalytic studies are done in collaboration with Dr. Mario Occelli of Union Oil Co. Fluid cracking catalysts (FCCs) are used to reduce the average molecular weight (and with it viscosity, boiling point, and density) of hydrocarbon oils derived from petroleum, coal, plants, or other sources, and are therefore key elements in the refining of these materials. The natural oils often contain transition metal (most commonly nickel or vanadium) complexes that deactivate the FCC. (Recycling of oil is also inhibited by metal contamination.) This line of investigation aims at development of FCC materials resistant to poisoning that could be used with metal-contaminated (and therefore less expensive) oils.